Formation of a Psychology Institute (PsyIns) to Provide HighSchool Psychology Teachers with Interactive, Hands-On Lab Experiences to Teach Psychology as a Scientific Endeavor

This three year project sponsored by Eastern Illinois University will provide 25 teachers of high school psychology a four-week summer program to acquaint them with the use of hands-on modules for use in demonstrations and experiments illustrating the scientific aspects of psychology. In the first year well-prepared teachers will learn about the modules, use them in the schools and revise them as needed. The revised modules will be evaluated by an outside evaluator and/or used in the second year with a less-well-prepared group of teachers. In the third year the implementation and dissemination phase of the project will take place. Matching funds from the school and the University constitute 14% of the NSF award.